Development of Time-resolved and Spectroscopic Ellipsometry using Grating Diffraction

9301313 Azzam Grating diffraction has been central to spectroscopy and its many application in virtually every branch of science and technology. In this project the domain of use of diffraction gratings will be broadened to include spectroscopic polarimetry and spectroscopic ellipsometry. Specifically, the polarizing and dispersive properties of multipe-beam grating diffraction will be combined with high resolution detector arrays to realize new Stokes-parameter spectrophotopolarimeter that is capable of time- resolved and complete spectral polarization analysis without employing any moving parts or modulators. The development of such an instrument will represent a major advance in fast optoelectronics and is expected to have an important impact on many fields, particularly in materials research. As an application, we will use grating diffraction spectroscopic ellipsometry for the characterization, and studying the dynamic switching properties of liquid-crystal films. ***